Properties of Condensed Matter Systems and Field Theory

This theoretical research grant is jointly funded by the Divisions of Materials Research and Physics. It provides support for four researchers who are applying field theoretical techniques to a variety of condensed matter and particle systems. Topics to be studied lie in the following areas: low temperature physics including transport and thermodynamics of many-particle systems, the quantum Hall effect, strongly correlated Fermi systems, mesoscopic systems, superconductivity and superfluidity; field theory; complex fluids; neutron stars; the early universe; and, matter under extreme conditions. %%%